Travel: Travel: Conference: NSF Student Travel Grant for 2026 IEEE International Conference on Pervasive Computing and Communications (PerCom)

This project provides funding for students from U.S. institutions of higher learning to attend the 2026 IEEE International Conference on Pervasive Computing and Communications (PerCom). Pervasive computing focuses on technologies that are critical for many areas of high importance to society, such as smart cities, connected communities, efficient transportation networks and secure electrical grid. These technologies enable the development of novel AI-based applications using inexpensive resource-constrained software and unreliable networks, allowing wide deployment across cities and communities. Increased participation of US-based undergraduate and graduate students in PerCom would significantly contribute to the development of forward-looking CPS workforce. It provides students with the opportunity to interact with more senior researchers, and exposes students to emerging ideas and current industry practices in this important area.

PerCom 2026 is organized in March 2026 in Pisa, Italy. In addition to the main conference, it includes a large number of workshops and networking-oriented activity, including the Ph.D. Forum for graduate students.